Computational Group Theory

Baumslag
9973233
The principal investigator and his colleagues continue
developing the software package Magnus, which has been designed
to carry out computations in and experiments with, in the main,
finitely presented groups. This software has been set up so that
it can be used remotely, via the internet. This means that
researchers world-wide can use the software by logging on to the
Magnus server. The project uses Internet-based facilities to
maintain a list of outstanding open problems and to set up
several discussion groups focusing on related mathematical areas.
These support collaboratory interactions among users, including
researchers in Europe, Australia, New Zealand, Hong Kong, and
China. Software development includes the introduction of genetic
algorithms as well as measures to allow users to add their own
routines to Magnus, extending the scope of the tool. The
investigators also use Magnus to study problems in pure group
theory and in commutative algebra. The project includes the
training of students.
In mathematics, group theory aims to capture and study the
essence of symmetry, particularly in patterns. Such patterns
occur frequently in nature, for instance as crystals. Its
connection with symmetry makes group theory important in physics,
in biology, and in the study of our physical world, as well as in
geometry and other mathematical fields such as the theory of
computation and cryptography. The investigators' goal in this
project is to build an easy-to-use computational tool that makes
it possible for a user to carry out experiments and solve
problems about the most ubiquitous of the mathematical objects
involved here, the so-called finitely presented groups. These are
groups that can be described completely by a finite set of rules;
examples include the group of rigid geometric motions of an
object and the groups of quantum mechanics. The computational
tool, Magnus, has a simple but limited interface. Nevertheless,
Magnus has already been used to explore and solve a number of
difficult problems in group theory. The present project focuses
on algorithmic developments and techniques to allow users to add
their own routines to Magnus, extending the scope of the tool.
The project also provides Internet-accessible computation and
information resources in a collaboratory setting, fostering
Internet-based interchanges and collaborations among researchers.
Finally, the project helps train students in both computation and
mathematics.